CAREER: Foundations for a Secure Agentic Web

Agentic web is increasingly becoming a phenomenon, as generative AI (GenAI) permeates every layer of the web stack. While the agentic web undoubtedly enables many exciting use cases, it also introduces serious security, privacy, and safety risks. The crux of the problem is that the web platform was never designed to support GenAI. When this mismatch intersects with the web's longstanding security and privacy weaknesses and GenAI's own inherent limitations, it precipitates a cascade of vulnerabilities. To safely leverage the transformative capabilities of the agentic web, we argue that the web platform must be systematically re-architected for GenAI, which is both the key novelty and the goal of this project. This project's broader significance lies in providing a technical foundation that pushes research and industry toward an agentic web with rich functionality and strong security, privacy, and safety properties.

We pursue an intuitive yet transformative strategy toward that goal. First, as the agentic web is an evolution of the existing platform rather than a parallel ecosystem, we strengthen the web platform to provide a resilient foundation. Second, as the agentic web diverges from the conventional web, native interfaces are indispensable to support unique use cases enabled by GenAI; we therefore expand the web platform for agentic interfacing, thereby also enabling principled defenses against the agentic web's unique risks. Third, although GenAI is remarkably capable, its robustness remains an open problem. We thus draw on time-tested systems-security principles for preventing and detecting GenAI-instigated risks. The research also provides timely educational guidance on understanding and safeguarding the agentic web in particular, and GenAI systems in general. Together, these efforts lay the groundwork for a secure agentic web, enabling myriads of users to safely benefit from its emerging capabilities.